National Conference on Wind Engineering, June 5-7, 1997

9706155 Jones The 8th National Conference on Wind Engineering will be held on June 5-7, 1997, at the Homewood Campus, Johns Hopkins University. Held every four years this conference provides a major forum for the exchange of information and discussion of all recent developments in and applications of wind engineering; for the assessment of the state-of-the-art; and for recommending new venues and topics in wind engineering research. The program for the conference comprises theme lectures, special lectures, regular papers and discussion groups. Support will be provided to graduate and undergraduate students for attending the conference. The students interaction with national and international experts as well as the exchanges between researchers and practitioners is a source of great benefits to the wind engineering research community. ***